Mechanical Sciences: The Acoustoelastic Response of Polycrystalline Aggregates Exhibiting Texture

Acoustoelasticity is a method which had been studied for use in thenondestructive evaluation of stresses within a structural component. This research program seeks to extend the description of acoustoelasticity toadequately model the response of materials exhibiting realistic textures to an arbitrary degree. This will begin with an analytical study to model the elastic and acoustoelastic properties of a polycrystalline aggregate from the known characteristics of the constituent crystals and their orientation distribution. Associated with this is the general description of the acoustoelastic response of an elastic wave in an orthotropic body under arbitrary loading. Both bulk (longitudinal and shear) and surface waves will be considered. Also to be studied is the effect of finite grain size in a polycrystalline aggregate on the homogeneity of the effective properties of the aggregate, particularly as they relate to acoustoelasticity. A complementary experimental investigation will assess the practical viability of the proposed models.